Collaborative Research: Scaling Up Robust Multi-Agent Systems: Bridging the Gap between Theoretical Foundations and Practical Applications

This NSF project aims to develop efficient learning methods that enable autonomous multi-agent systems to perform effectively and reliably in unpredictable real-world environments. Artificial intelligence (AI) systems trained in simulations often suffer performance degradation or even catastrophic failure due to inevitable mismatches between the idealized training environment and the noisy, variable reality. In multi-agent systems including Intelligent Transportation Systems (ITS) and smart grids, this challenge becomes more critical, as simultaneous interactions among many autonomous agents can cause errors to compound and propagate across the entire system. The project will bring transformative changes by creating robust multi-agent learning algorithms with mathematical guarantees of reliable performance, bridging the divide between theoretical advances and practical deployment. This will be achieved by designing decentralized learning methods that allow agents to make decisions using only local information, and scalable techniques that remain tractable as the number of agents grows and validating these approaches on ITS and power grids. The intellectual merit of the project includes (1) foundational advances in robust multi-agent learning theory and novel decentralized algorithms with provable convergence guarantees, (2) new function approximation frameworks that overcome dimensionality barriers, and (3) practical robust control methods for vehicle fleets and power grids. The broader impacts of the project include advancing trustworthy AI for critical national infrastructure such as autonomous transportation and resilient power grids, releasing open-source software tools, integrating research into university curricula, and organizing workshops with industry and government partners to inform certification standards for autonomous systems.

Technically, this project will advance robust Multi-Agent Reinforcement Learning (MARL), which is a framework that enables autonomous agents to learn reliable decision-making strategies under environmental uncertainty but is currently limited by its reliance on centralized coordination and poor scalability to large systems. This research project includes three thrusts to address these limitations. Thrust 1 develops efficient, decentralized robust MARL algorithms based on policy gradient methods for both competitive and cooperative settings, employing multi-timescale stochastic approximation and network consensus protocols to establish convergence guarantees for decentralized, model-free robust learning. Thrust 2 tackles scalability by introducing function approximation into robust MARL, designing linear and Gaussian process formulations that reduce computational and sample complexity from exponential to polynomial, breaking the curse of dimensionality in MARL. Thrust 3 validates these algorithms on autonomous vehicle fleet management using large-scale taxi trip datasets, and on resilient virtual power plant control using electric vehicle charging data, demonstrating practical robustness in high-impact application domains.